Gravitational Radiation and Relativistic Astrophysics

In 2015, the LIGO detectors, funded by NSF, made the first direct detection of gravitational waves (GWs): ripples in spacetime resulting from the collision of two distant black holes. Since then, LIGO has observed GWs from almost 400 black-hole collisions and two binary neutron star collisions, allowing scientists to learn about these objects and about gravity itself. The primary scientific objective of this award is to theoretically underpin and improve LIGO's ability to extract from observed GWs the rich information that the waves carry, and to improve the interpretation of LIGO events that are accompanied by simultaneous detections from other instruments, such as neutrino detectors and optical, gamma-ray, and radio telescopes. Extracting information from a LIGO event and interpreting the event is done by comparing LIGO's observed GW signal with a predicted signal that is computed from general relativity for a particular situation (like two colliding black holes with particular masses, spins, and velocities). This award will improve the state-of-the-art in computing such predicted GW signals, will add new cases (black holes with large spins, eccentric orbits) and hard-to-compute physical effects ("gravitational-wave memory") to a public catalog of GW signals, will build new fast approximate models that can compute GWs in milliseconds rather than months, and will compute some signals using beyond-Einstein theories of gravity to facilitate tests of gravity by LIGO. The postdocs and graduate students working on this project receive crossdisciplinary training in computational modeling and various fields of physics and astronomy. The computational techniques developed here can be used to solve problems in other areas like fluid dynamics, meteorology, seismology, and astrophysics; young researchers trained in these techniques are in great demand.

Using numerical relativity (NR), GW signals for binary black hole (BBH) systems will be generated in poorly-explored regions of the BBH parameter space (including eccentric binaries, and high mass ratios and spins) and included in the SXS public simulation catalog. Efficiency will be improved by a machine-learning/AI algorithm for choosing BBH parameters. The SXS catalog will be updated with waveforms computed using Cauchy-characteristic evolution (CCE), which eliminates most coordinate artifacts and accurately computes GW memory. New BBH surrogate models, data-driven waveform models trained on NR, will be constructed over an expanded parameter range, including eccentricity. The next-generation open-source NR code SpECTRE will be applied to studies of neutron-star binaries to better understand multi-messenger events. Black-hole perturbation theory will be studied to better understand how to use GW detectors to test beyond-Einstein theories of gravity and to measure nonlinearities in BBH ringdowns.